Conference on Frontiers of Plant Morphogenesis Keystone Symposium, Hilton Head Island, South Carolina, March 29 - April 4, 1995

This proposal requests support for a Keystone Symposium, Frontiers of Plant Morphogenesis, to be held at Hilton Head Island, South Carolina, from March 29 through April 4, 1995. The meeting will be held concurrently with another Keystone Symposium, Signal Transduction in Plants, and there will be two joint plenary sessions that will bring together both groups of scientists for discussion of topics of mutual interest. The area of plant development is tremendously diverse; however with the acquisition of modern cellular and molecular information, common themes are beginning to emerge. It is therefore essential, at this time, that workers in traditionally diverse areas be apprised of recent advances in order for new syntheses to be developed. To date, there has not been a meeting that has concentrated on bringing cell and molecular biologists together for the sole intent of presenting and discussing problems in morphogenesis. This is the first meeting that will bring together workers who are interested in understanding how gene expression affects, and is affected by, second messengers; how this information is translated by the cytoskeleton into positional information; and how the wall components, in turn, cue this positional data to define the morphology of plant cells which ultimately defines the overall shape of the plant.